UCAR Educational Outreach and Related Activities

This Scientific Program Order supports the University Corporation for Atmospheric (UCAR) Educational Outreach Program and related activities. Specifically, this SPO will support visiting scientists at UCAR, postdoctoral research in ocean modeling, summer employment program, and workshops involving the atmospheric community.